11th U.S.-Japan Workshop on Bridge Engineering, Tsukuba, Japan, May 1995

Abstract The U.S. - Japan Workshop on Bridge Engineering is an annual meeting between American and Japanese bridge engineers, which is conducted under the auspices of the U.S. - Japan Panel of Wind and Seismic effects of the UJNR program. This meeting includes a two-day workshop with technical presentations of the participants related to recent advantages of bridge engineering and a study tour of bridge structures and organizations. Ten meetings have been conducted so far, and all of them have proven to be very fruitful and productive experience for the participants of both countries. The workshop will be held in Japan in May 1995, to support the participation of U.S. delegates who will make technical presentations and participate in the study tour.